Molecular Analysis of Naturally Occurring Copia Variation

9307220 McDonald Molecular Analysis of Naturally Occurring copia Variations (John F. McDonald, P.I.)%%% There is an ever growing body of evidence that retroviruses and retroviral-like transposable elements are a major source of mutation in higher eukaryotes including humans. The ramifications of this fact extend to a broad range of biological disciplines ranging from medicine to evolutionary genetics. Although we now know a great deal on the mechanisms of how retroviral-like elements alter the expression of chromosomal genes, little or nothing is known concerning how retroviral elements are maintained and spread within and between species. In addition, it remains a mystery as to how retroviral elements insertion mutations which are usually non-adaptive can nevertheless increase in frequency and eventually become "fixed" (i.e., attain a frequency of 1.00) in some species over time. One possibility is that host chromosomal genes capable of suppressing the mutant phenotype associated with retroviral insertion variants are present in natural populations and serve to harbor insertion variants by shielding them from natural selection. Dr. McDonald hypothesizes that insertion variants may periodically increase in frequency due to "founder events" or other such forced inbreeding effects.%%% Over the next three years Dr. McDonald will study the mechanisms by which the copia retroviral-like element is maintained and spread through natural populations of Drosophila. Drosophila is an ideal system for these studies because retroviral elements are well understood in this organism and element frequency and mutational effects can be easily monitored. Dr. McDonald will be concentrating on identifying host genes capable of trans-regulating retroviral elements and studying their frequency and mode of action in a number of Drosophila species. The DNA sequence of copia elements isolated from a number of Drosophila populations and species will be analyzed t o determine if structural differences which might affect element activity are variable in natural populations. Dr. McDonald will search for transregulatory effects by introducing the same copia LTR-reporter gene construct into several strains and species and monitoring the effect of LTR mediated expression. Results will shed light on the factors determining the maintenance and spread of retroviral elements in natural populations and species of all higher eukaryotes. ***